Developmental Biology Laboratory for Advanced Undergraduates

The goal of this project is to provide juniors and seniors with experience in cellular and molecular approaches to the study of basic issues in development. A refrigerated microcentrifuge, speedvac, and incubator enable students to prepare and use RNA probes in an in situ hybridization exercise; dissecting microscopes allow students to exam aspects of embryonic axis formation; and the regulation and determination of single cells labelled with fluorescent compounds is studied using an epifluorescence microscope. In addition, students use the equipment to carry out independent projects.